1995 Aspen Winter Elementary Particle Physics Conference; Aspen, CO

9400170 Appelquist This grant partially supports the latest in a series of conferences on various topics in Physics held yearly at the Aspen Center since 1985. The one-week session in January has as its subject Heavy Quarks, Heavy Leptons, and Massive Neutrinos. Both theoretical and experimental presentations are made. Issues discussed are of greatest current interest in elementary-particle physics. The setting provides an opportunity for close interaction among theorists and experimenters particularly hospitable to younger scientists. ***